Geometry of Algebraic Cocycles

9803141
Gajer
This project lies on the interface of algebraic topology, differential
geometry, and algebraic geometry. It is based on the investigator's
work, in which he successfully employed some classical constructions
of algebraic topology and differential geometry to reveal the
geometric content of ordinary cohomology as well as of smooth and
holomorphic Deligne cohomology. The investigator plans to apply the
ideas contained in his previous research on Deligne cohomology to
study the structure of the image and the kernel of the cycle
homomorphism. Some of the deepest and most important problems of
transcendental algebraic geometry concern the cycle homomorphism. The
most celebrated among these is the Hodge conjecture. Except for a few
classes of very special algebraic varieties, codimension one is the
only codimension in which complete cohomological and geometric
descriptions of the image and the kernel of the cycle homomorphism
exist. The investigator intends to pursue extensions to all
codimensions of structures playing a central role in the codimension
one case. In particular, he introduces generalized exponential
sequences and a new cohomology theory that is conjecturally dual to
Chow groups of algebraic cycles modulo rational equivalence. The
objective of this project is to verify that conjecture. If this is
the case, then the cohomology long exact sequence of the generalized
exponential sequence will induce a complete cohomological description
of the image and the kernel of the cycle homomorphism.
Projective varieties are geometric objects defined by means of
polynomial equations. Like other notions that arise in many important
contexts and sound deceptively simple, for example, the ordinary whole
numbers, they possess properties that are not at all obvious or easy
to discover, and over the course of many years, mathematicians have
been led to develop elaborate algebraic machinery for making
computations concerning some of these properties. It is hard to
remain in touch with the geometric meaning of these computations, and
this is what has given rise to the current project. The investigator
will attempt to understand a geometric structure of what are known as
algebraic cycles. This will be done by extending some classical
techniques of algebraic topology and differential geometry to the
context of algebraic geometry. One might say that at least this one
corner of algebraic geometry will be reintroduced to its roots. This
will be not only an esthetic triumph, but an aid to intuition and thus
to further discoveries and advances in mathematics and in the
disciplines like theoretical physics that make use of this mathematics.
***